Engineering Research Equipment Grant: Image Analysis Systemfor Automated Microscopy

An image analysis system configured for automated microscopy will be used to quantitatively characterize experiments designed to understand various aspects of cell behavior. Specifically, automated image analysis will be used for: - measuring spatial distributions of cells and paths of cell movement in chemotaxis assays. - characterizing distributions of microbial cells which attach to surfaces during biofilm formation. - investigating growth kinetics of mammalian cells immobilized in a polymer matrix. Experimental data are to be evaluated using theoretical considerations postulated by the PIs.